Parity Violation in Moller Scattering and Real Photon Experiments

Proposal: "Parity Violation in Moller Scattering and Real Photon Experiments"
PI: Piotr Decowski, Smith College

Abstract: The grant will support involvement of undergratuate women students
in cutting edge experiments at the Stanford Linear Accelerator Center: in the
high precision measurements of electroweak mixing angle at very low momentum
transfer and in the first two experiments that will use the new photon
facility in the SLAC End Station A. The photon experiments will measure
nuclear mass dependence of J/psi and psi-prime photoproduction cross sections
and will determine gluon spin density in protons from open charm
photoproduction. Students will participate in building and testing parts of
detection systems at Smith College, and in analysis of data at SLAC.